Materials Camp Student Support 2003

This proposal is to provide for participant support for high school students attending the
Materials Camp program during summer 2003. These camps are similar to the Materials
Camp program funded in 2002 by NSF Engineering Division. The program provides
hands-on learning in materials science and technology for high school students from
across the U.S. In 2003 two Materials Camp programs are planned, each for 30 students.
The two programs are to be held as follows:
Materials Camp West, University of Washington, Seattle, WA, July 7 - 13, 2003
Materials Camp East, Materials Park, OH, August 11 - 17, 2003
The curriculum of the camps includes engineering applications of metals, ceramics,
polymers, composites and biomaterials. Students experience learning using both set
laboratory experiments and a team project in which they explore structure-property-
processing-applications relationships in materials as related to engineering systems.
Everyday materials systems are the foundation of the program, building to more
advanced applications. Professional society volunteers work with each team of five
students to ensure real learning and motivation. The camp concludes with project
presentations by the students to a professional audience.
The expected outcome of this project are a set of 60 students who are more
knowledgeable of engineering and engineering applications, with specific experience in
the area of materials. Our evaluation of previous camps is very positive in convincing
students to consider and enroll in engineering in college. Thus our expectation is that we
will be able to focus students on the advantages of engineering studies and thus increase
engineering enrollments, not just among the students who attend but among their peers as
well.
The intellectual merit of this proposal relates to the knowledge that these student will
learn. The students who attend the camp are generally the better students in a high
school. Most of them initially indicate that they are not interested in science or
engineering, but rather other areas from art to social science to medicine. Using the
focused, hands-on approach of the camp program, our experience shows that the
intellectual content of the camp excites them, thus broadening their thinking as to a career
and future study.
The broader impact of the program provides these bright students with specific
understanding of the potential of careers in engineering, provides a potential new set of
students for science and enginering study, thus increasing the pool of U.S. students
interested in science and engineering. It also serves to broaden student understanding of
the field of materials, and demonstrates the centrality of materials to engineering and
science.